Undergraduate Embedded Systems Laboratory

Cooper Union's Electrical Engineering Department plans to develop a twenty-station Undergraduate Embedded Systems Laboratory to provide readily interconnectable embedded systems components. These include, but are not limited to, electrical actuators such as motors and motor drives; valves, power relays or solenoids, assorted sensors, signal conditioning and interface components; and ruggedized, pre-packaged, brick- sized, fully plug-compatible, real time imbedded processors. Senior students design, assemble, and test their own unique embedded system applications and are responsible for all aspects of software and hardware performance. Although commercial developmental software is provided, alterations, software patches, and custom routines are invariably required. The proposed laboratory is in real time hardware design, where embedded processors and their required software are treated as just another hardware component, albeit complicated by their attendant software. The principal goal is to expose each student to the nonlinearities, time delays, and unexpected problems of real-life real-time system design. Funds are requested for embedded computers and their drivers only; funds for all other components, such as motors or sensors or relays, are provided by Cooper Union, along with the required matching funds.